Establishment of the First U.S.-Korea Nanoforum

0340660
Jhon

This award supports the participation of American researchers in a U.S.-Korea workshop on nanoscale science and engineering to be held in Seoul, Korea in October 2003. The U.S. organizer is Professor Myung S. Jhon of Carnegie Mellon University. The workshop will allow for broad ranging discussions on state-of-the-art research, and is intended to identify opportunities for U.S.-Korea collaboration in this rapidly advancing field. Experts from both sides will make presentations on nanoscale science and engineering in relation to policy and education, simulation, fabrication, devices, electronic applications, information technology, biotechnology, and energy and the environment. The exchange of ideas and data with Korean experts will enable U.S. participants to advance their own work, and will set the stage for future collaborative projects. Seminar organizers have made a special effort to involve both senior and junior researchers.